Dissertation Research: Ethnographic And Historical Study Of The Andaman Islands

This project supports the dissertation research of a cultural anthropologist from Rutgers University studying the indigenous Negrito people of the Andaman Islands, India. These islands were the site of some important ethnographic research on hunter- gatherers in the early part of this century, and have not been restudied in recent times. This project traces the history of the Indian state's administration of the indigenous societies, the history of resettlement of mainlanders, and the diminution of the native populations. Methods involve participant observation, in-depth life history interviews, and the study of local government archives. This project is important because the declining population and immense health and social problems of local indigenous peoples caused by their interaction with national states has been a recurring tragedy. This case study of a group studied several generations ago will add valuable material that can help policy makers understand the impact of state involvement with native peoples, and hopefully ameliorate the negative impact of the interaction.